Taxol Biosynthesis: Identity of Taxol Direct Precursor in Cell Culture

9632961 Shuler The goal of this proposed research is to identify and investigate the biosynthetic significance of an unknown taxane recently discovered in the Principle Investigators laboratory while performing plant tissue culture experiments with certain metabolic inhibitors. These experiments involved the culture of Taxus species which produce Taxol, an important new anti-cancer drug. It is currently generally accepted that baccatin III is the direct biosynthetic precursor of Taxol. However, recent experiments by the PI indicate that baccatin III could be selectively and completely inhibited without any significant effect on Taxol production. Other inhibition experiments have shown the accumulation of a single unknown taxane, which is not baccatin III, but which could,, in fact, be the direct precursor of Taxol. This proposal outlines a multidisciplinary approach to identify this unknown compound and investigate its biosynthetic significance using knowledge of manipulation of Taxol production by Taxus cell cultures, and established techniques in biosynthetic chemistry. ***